ICAMDD 2005

This funding is to support US researchers participation in the International Conference on Advanced Materials Design and Development (ICAMDD-2005). With this conference we will encourage both dissemination of recent, leading edge research results as well as in-depth discussions of future directions in simulation-based design and development of materials. The conference will be held in Goa, India, December 14-16, 2005. This funding will help make it possible to have the participation of leading experts from North America, with the participation of under-represented minorities strongly encouraged.

The expected outcomes and broader impacts of this conference will include the identification of the next research challenges and potential collaborations to address these issues for the design community and the many engineering domains and systems that would benefit from the new computer integrated design tools that evolve.